Workshop: Material Handling Research Colloquium; June 11-14, 2000, York, PA

This grant provides partial funding for a Material Handling Research Colloquium (MHRC). The goal for MHRC 2000 is to bring together researchers with industry participants to address material handling in the context of the National Research Council's report, Visionary Manufacturing Challenges for 2020. St. Onge Company is the host for the Colloquium, and major funding is provided from industry through the Material Handling Industries of America.

The impact of the Material Handling Research Colloquium will be felt in several ways. First, by providing a focused, intimate setting for researchers to present and discuss their latest work, the Colloquium will speed the dissemination of state of the art ideas and results within the research community. Second, by providing a forum for industry and the research community to address the challenges of the next twenty years, the Colloquium will significantly impact the direction of future research. The proceedings of the Colloquium will include not only the research papers presented, but also summaries of the breakout sessions addressing future research needs.